Proposal for an ad hoc Workshop on Magnetized Dusty Plasmas; Fall 2009, Auburn, AL

This award provides support for an ad hoc workshop on the physics of a magnetized dusty plasma. The primary aim of this short, 3-day workshop will be to bring together leading US researchers in the dusty plasma community to develop the working parameters for a mid-scale magnetized dusty plasma experiment.
The workshop will consist of a series of presentations followed by lengthy discussions.
Topics under discussion will include: physics basis for magnetized dusty plasma experiments, new wave modes in magnetized dusty plasmas, experimental limitations and diagnostic needs.
The workshop will be held at Auburn University in Auburn, AL in Fall, 2009.
The activity will advance the scientific study of the physics of dusty plasmas. There are presently very few studies focused on the impact of magnetic fields on dusty plasma or plasmas with embedded paramagnetic particles. This workshop will serve as an important first step to explore this regime of dusty plasma research.